Priming the Pump: Connected Geometry

This project will develop a set of curriculum materials and accompanying teacher support materials that will use geometry to bring a culture of mathematical exploration into the classroom, interconnect students' experiences with various parts of experience. The materials will include (1) a library of students activities designed so they can be used to form coherent units addressing specific content and themes; (2) a Curriculum Map Maker designed to help teachers select activities and sequences of related activities, ranging from extensions to existing geometry courses to completely new courses; and (3) a Self-Guided Inservice Package to help teachers learn to make effective use of the toolkit and to explore the new models of teaching embodied in the activities. The activities will encourage students to experiment mentally, using physical manipulatives, and using computer images. They will foster students' development of mathematical ways of reasoning, analyzing, and communicating; link geometry to science, technology, art. and other areas of students' experience; and link geometry to important ideas in other areas of mathematics, including algebra, analysis, number theory, combinatoriecs, and linear algebra.